REU Site: Cell and Molecular Visualization at Brandeis University

This project is co-funded by the Department of Defense in partnership with the NSF REU program. The Brandeis University REU program will support the training of 10 undergraduate students for 10 weeks, during the summers of 2011-2013. Students will conduct research employing modern cell and molecular visualization techniques. A large number of faculty in the Life Sciences at Brandeis will introduce undergraduate students to a broad range of topics on biological structure and function. Training will take place in a supportive and interactive environment with state-of-the-art facilities. Participating faculty have a strong record of mentorship of undergraduates. Students will conduct full-time research guided by their mentors. In addition, they will participate in weekly lunch seminars, which will include faculty research presentations, ethics discussions, and professional development activities such as panel discussion with students and postdoctoral fellows from the Boston area on careers in biotechnology and research. Students will have an opportunity to interact with scientists, who have diverse interests and at different stages in their careers. A weekly break-out session following the seminar will feature group discussion of ethical and science issues with the speakers, in a smaller group setting. Students will develop a written synopsis of their summer work, with feedback from their mentors, and will participate in a capstone symposium including poster presentations. Students will be recruited through the web, as well as personal outreach at undergraduate research conferences and visits to local institutions. Participants will be selected based on academic record and potential for research in biology. The value of the experience for students and mentors will be measured by various assessment instruments, including a common REU assessment tool. The impact of the experience will be monitored by tracking students for continued interest in science, further educational choices, and career paths. More information can be obtained by visiting http://www.bio.brandeis.edu/undergrad/summerresearch, or by contacting the Director, Dr. Susan Lovett at [email], or the Co-Director, Dr. Joan Press at [email].